Catalytic Dehydration of Carbohydrates in Near- and Supercritical Polar Solvents

Biological processes can produce large quantities of ethanol, i-propanol, lactic acid, and 1-Butanol at moderate cost from renewable biological resources. The acid catalyzed dehydration of these bioproducts in supercritical water can result in high yields of the important high value petrochemicals ethylene, propylene, acrylicacid, and 1-Butene at pressures exceeding 22 MPa. Thus these industrially important monomers can be produced from dilute aqueous phase solutions of the biological substrate at pressures appropriate for the direct synthesis of polymeric plastics, such as polyethylene and polypropylene. Similarly, furfural and 5-hydroxymethyl furfural can be obtained from pentoses and hexoses in high yields. These furaldehydes are used industrially to synthesize resins. Unfortunately, parasitic reactions compete to consume the bio-substrate and reduce the yield of the high-value monomer. The objectives of this research are to identify the mechanisms and kinetics of these competing reactions in order to determine conditions and catalysts which optimize yields of the double bond forming dehydration reactions. The key element of this work is its emphasis of near and supercritical water as a reaction medium. Hawaii and many of the developing tropical countries (such as Thailand and the Philippines) could enjoy a resurgence of their agricultural economies if higher value uses for the fermentation products of sucrose were identified. Similarly, Nebraska, Kansas, Iowa, and other mid-western states would benefit from alternative, higher value uses for ethanol, lactic acid, and other fermentation products of the corn products industry. The production of plastics, resins, and petrochemical intermediates from bio-materials is perhaps the most promising option for improving the economics of sugar- and corn-based agricultural economies. Prior work has revealed the promise of catalysis in supercritical water as a new method for producing petrochemicals from bio-materials. This research will lay the foundation for industry to exploit this new reaction chemistry.